SBIR Phase I: Multiple Access Laser Communication Terminals for Optical Orbital Hotspots

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project lies in the development of an Optical Orbital Hotspot network that will enhance satellite data collection and utilization. This innovation is projected to make small satellites operating more efficient and accessible, thus empowering businesses, agencies, and new entrants. The expected result is an increase in data generation and transfer, improving connectivity to cloud-based services and Low Earth Orbit (LEO) space-based platforms. By decreasing the technical and cost barriers to LEO access, rapid innovation will be enabled, leveraging existing aerospace research. This development is aligned with a growing market, with the satellite laser communication market expected to reach $4.1B by 2031. The commercial implications are vast, including opportunities to address an even larger satellite ground station market, with the potential to enable transformational opportunities across various sectors.

This SBIR Phase I project proposes to develop and refine the technology for an Optical Orbital Hotspot network integration and implement advanced beam steering technologies. The primary challenges lie in the creation of multi-access lasercom terminals (MALT) and the development of orbital optical hotspot technology. The research will mature the optical designs of the MALT and compact user lasercom terminal systems (micro-LCT). Research and objectives to be addressed range from operations development to preliminary hardware design. The anticipated technical results will include the establishment of orbital models, multibeam steering technology development, interface and requirements definition, and design for the MALT and micro-LCT systems. These efforts will collectively solve the 'last mile problem' for small size, weight, power, and cost satellites, enhancing capabilities and lowering high data rate communication barriers in the Earth observing systems market.